RIA: Controlling Synthesis of Domain-Specific Object- Oriented Programs

This research will address the problem of automatically synthesizing object-oriented programs, focusing on control of the synthesis process. The primary objective is to reduce user interaction in transformation-based automated synthesis systems by means of significant advances in control mechanisms. Secondary objectives include application of synthesis to object-oriented program development, identification of practical specification languages for object-oriented synthesis systems, and techniques for specification acquisition, software modeling, and knowledge representation that support software reuse and maintenance. Automated program synthesis is one of the central methods used in knowledge-based software engineering to enhance the quality and efficiency of software development. Although many transformational synthesis systems have been successfully designed and implemented, automatic control of the synthesis process remains a difficult problem. This research proposes a domain-specific knowledge-based system that includes intelligent control for synthesizing object- oriented programs. The proposed research will develop transformation rules and schemas used for synthesis by implementing as experimental system for a specific domain. The architecture integrates a black-board-based control mechanism with an existing transformational system to achieve greater efficiency in program synthesis. By employing a blackboard-based architecture, the system explicitly represents control knowledge used in guiding the selection of transformations.//